Petrologic and Geochemical Investigation of the Wrangell Volcanic Field, Alaska

The Wrangell volcanic field (WVF) defines the northeastern- most expression of late Cenozoic volcanic activity associated wit plate convergence in southern Alaska. The primary goals of this research are: identification and characterization of mantle and crustal reservoirs responsible for WVF volcanism; quantification of the relative roles of these reservoirs in the evolution of WVF mafic silicic products; and evaluation of the relationships between magmatic evolution, mantle-crust interactions, and lithospheric structure and composition in the WVF as a model for understanding continental arc processes. In order to achieve these goals, combined field, petrographic, mineral chemistry, elemental (including REE), and isotopic (Sr, Nd, Pb) studies of eruptive products from three major WVF volcanic centers, Mount Drum, Mount Churchill, and Skookum Creek, are planned.